Biological Response to Environmental Change

This award is made in partial support of a workshop on "Biological Response to Climate Change." The workshop is being administered by the Department of Energy and involves the support of seven federal agencies. The workshop will be held at the Marine Biological Laboratory in Woods Hole, MA, on October 19-21, 1987.//